Second International Workshop on Non-Lymphocytic Cytokines, December 10-14, 1989, Hilton Head, South Carolina

Within the past decade it has become apparent that there are numerous non-lymphocytic cytokines that have profound effects (either directly or indirectly) on virtually every aspect of vertebrate defense responses. These mediators, which include interleukin 1 alpha and beta, tumor necrosis factor, transforming growth factor beta, chemotactic factors, colony stimulating factors, interferons alpha and beta, interferon beta 2 (IL-6), and others may also play a role in normal physiological processes related to growth, development aging, and homeostasis in general. The objectove of this symposium is to bring together the outstanding international junior and senior scientists working in the general area of the biology and biochemisry of non- lymphocytic cytokines to discuss the following topics: 1. the molecular biology, biochemical characterization and biological properties of the various non-lymphocytic cytokines, 2. their synthesis, processing and release, 3. the physiologic and pharmacologic actions of these cytokines at the molecular, cellular, tissue, organ system, and organism levels, 4. the biochemistry of cytokine receptors and post-receptor events, 5. the interactions of non-lymphocytic cytokines including various feedback loops (both positive and negative) and potential synergistic actions, 6. the practical applications of cytokines and agents that affect their synthesis, release, or actions. This symposium will promote the interaction and exchange of information among investigators actively pursuing this important and rapidly developing subject.